Elliptic problems in field theories

Abstract

Award: DMS-9972300
Principal Investigator: Yisong Yang

It is widely recognized that fundamental interactions are
described by soliton-like structures which are classical
solutions of various field-theoretical models. The PI's main
objective in the proposed research is to understand four closely
related important types of solitons in field theories:
electroweak dyons, coexisting vortices and antivortices,
Faddeev's knot-like solutions, and the Born--Infeld solutions.
Electroweak dyons are electrically and magnetically charged
localized solutions in the Weinberg--Salam unified theory for
electromagnetic and weak forces in particle physics and the
existence problem is a variational problem with indefinite action
functional involving delicate constraint invariants and subtle
weak compactness issues. The coexisting vortices and
antivortices appear in a newly discovered field theory and the PI
proposes to develop a full existence analysis and study the
topological and analytic structures of the solutions. Stable
knot-like structures are important in describing several
fundamental processes including particle interactions and DNA
chain interferences. The PI plans to study its mathematical
existence theory and dynamical properties. The Born--Infeld
theory has received much attention recently due to its relevance
in some areas of superstrings and supersymmetry. The PI will
study classical solutions arising from the Born--Infeld theory
and their connections with geometry and physics.

These mathematical problems are not only interesting and
challenging, but also have important applications in a wide range
of areas including superconductivity and superfluids, particle
physics, cosmology, and molecular biology. On the educational
side, the PI has already been involved in developing
undergraduate curriculum modules based upon applications of
mathematics. The research presented in this proposal will provide
new ideas for demonstrating the vivid interactions between
mathematics and other areas of natural science.